Single Chip Supercomputers

The proposed research focuses on building vision systems with supercomputer capability into fast, small, low-power, analog integrated circuits. Examples where visual acuity and dexterity would be useful in products include collision sensors for cars, ground speed detectors for anti-skid lock brakes, navigation systems for mobile robots, perception sensors for micro robots and image pre-processors for remote sensing instruments. Current supercomputers are too large, too general and too complex to be cost-effective for such applications. Vision algorithms will be implemented directly in silicon through analog networks. Computation performed this way is the ultimate in parallelism, is inherently low power and compiles to a very small package size because sensors can be integrated directly with computational networks. Single chip sensor systems to be useful in the real world however, must be adaptive and self-calibrating. Designing adaptive, flexible, smart sensors requires extensive simulation. In fact, for simulations to complete in any reasonable time frame, computational assets on the order of supercomputer capability are essential. The research proposed is to utilize today's general purpose supercomputers to develop the appropriate algorithms for designing tomorrow's application specific single- chip supercomputers (analog vision chips). The Connection Machine, a 64,000 processor supercomputer, will be used for algorithm simulation and device design of these self-calibrating, adaptive vision chips. Standard computer vision algorithms bog down even the fastest computers in the world. For most vision applications, commercial supercomputers would not be feasible. For example, an automobile collision detection system must be small, low-cost, and consume little power. For such applications, general-purpose supercomputers would not be satisfactory (even if they were fast enough). The solution is to utilize special-purpose custom analog VLSI chips. These analog chips are fast, low-power, cheap and small. I have successfully built and tested more than a dozen different analog VLSI chips during my Ph.D. work at Caltech. These chips perform various smoothing, segmentation and interpolation algorithms using input from on-chip photosensors or scanned-in test data. Recently I am investigating some simple motion and stereo ideas.